ROW: Defining Kinematic Stability Fields for Shear-Sense Indicators

Many structural geometries used to determine the sense of shear in deformation zones are not well understood and cannot be used to obtain shear strain magnitudes. A computer code will be developed to quantify the relative importance of rigid objects and foliations to the development of shear zone fabrics. The code will simulate shearing deformation using a range of kinematic variables. At each stage of the project the model predictions will be compared with naturally deformed sheared rocks from well-constrained sites. The results will help clarify the relationships among many structures developed in shear zones and identify practical criteria for estimating shear-strain magnitude in rocks. These findings will be of practical value to structural geologists working in a great numbers of different tectonic environments.